Dissertation Research: Archaeology and Artifacts: Unearthing Identity

Abstract
This project focuses on the scientific and cultural production of knowledge at archaeological sites
through an ethnography of archaeologists working in Pompeii, Italy. The exacting "scientific" nature of
archaeology has played a pivotal role in the construction of cultural and national identities. This project
seeks to understand the micro-processes by which artifacts become scientific objects and how, as
scientific objects, artifacts become objects of signification: of "Italian-ness", "European-ness" and finally
"World Heritage". Italy is a country fraught with a continual crisis of cultural and/or national identity
but the narrative of a shared Roman ancestry became important in attempts to generate "Italian-ness".
Historically archaeology helped establish and legitimize this "common" identity.
Intellectual Merits
The intellectual merit of the proposed research is to examine how archaeology is currently being enrolled
in the project of identity formation. As one of the most important sites in Italy, Pompeii offers the best
opportunity to examine these processes at work. In 1997 Pompeii was "inscribed" by UNESCO and
designated a "World Heritage" site. As such it is a particularly interesting place to potentially locate the
formation of a new yet not fully defined European or world identity. This project not solely concerns the
uses that archaeology has been put to in the social and political arena, but also with the practice of
archaeology itself and how these practices construct scientific objects that are then employed to make
larger truth claims. While general conclusions have been offered as to the work of archaeology as a
nation-building tool, this project seeks to understand how archaeology as science is a "sign producing"
activity and exactly how it is that the archaeological sign comes into being and circulates to produce
narratives of heritage, identity and nation.
Broader Impacts
UNESCO's declaration of Pompeii as a "World Heritage" site points to the broader impacts of
this study. Archaeological artifacts have long been caught up in important and contentious policy debates
over the disposition of such objects: not just who owns them, but who can use them for proprietary and
narrative projects. This study will contribute to those policy debates, as well as the broader discussion in
policy circles in Europe: the Council of Europe explicitly stated in its Forward Planning Project of 2001
that archaeological heritage would be used to "Europeanize" Europe. This project will thus have broader
impacts in addressing the policy and scientific debate about the interface between the science and the
politics of archaeology in the new Europe. Finally, Italy has recently passed legislation allowing the
privatization of Pompeii. How can privatization be reconciled with the larger collective projects of
UNESCO and the Council of Europe (which themselves may be at odds)? The data collected through the
proposed research will be useful to scholars and policy makers attempting to navigate this increasingly
fraught legal and proprietary terrain.

This award is being co-funded by the Office of International Science and Engineering